Upgrading Mathematical Skills Through Computer Assisted Instruction

The project will establish a computer laboratory for assisting with the instruction of remedial students. Individualized student plans will be designed and monitored through testing and interviews. The project should give a significant contribution to the institution's interest in improving the mathematical background and interest in a client group that includes minorities and females.